Some problems in algebraic geometry with connections to string theory

A series of problems are proposed in algebraic geometry, inspired by
string theory. Some problems in string theory relating to algebraic
geometry are also proposed. These include the study of
algebro-geometric invariants related to topological string amplitudes:
Gromov-Witten, Gopakumar-Vafa, and Donaldson-Thomas invariants, all
conjecturally related to each other. Particular problems include a
rigorous definition of Gopakumar-Vafa invariants and their
generalization from Calabi-Yau threefolds to more general threefolds,
their computation in examples, and verification of the GW-GV
correspondence, beginning with toric varieties and contractible
curves. These invariants will be extended to threefolds which are not
Calabi-Yau. Computational methods for Gromov-Witten and
Donaldson-Thomas invariants are proposed. Several connections to
physics will be pursued, including black hole entropy techniques.

The project is a continuation of the exciting process of
cross-fertilization between string theory in physics and geometry in
mathematics. In string theory, the fundamental particles of nature
are small vibrating strings, and physical properties depend on the
geometry of the space that strings propagate in, much as the shape of
a drum affects the sound that it makes. Physically relevant
properties can be determined by calculations in pure geometry, in this
instance calculations of intrinsic interest in mathematics. When
physical methods of duality provide more than one mathematical model,
a consequence is a deep unexpected insight into geometry. In this project,
the PI will develop tools to investigate the mathematical validity of
some of these predictions and will expand the geometric investigation
beyond the physically relevant context. The PI will apply also
geometric techniques to advance understanding of string theory,
especially as it describes the statistical mechanics of a black hole.
The primary mathematical content is the counting of curves in curved
spaces called Calabi-Yau threefolds which form the small extra
dimensions in string theory.